Market Study of the Feasibility of a Professionwide News Publication

Narrative: The project conducts a market analysis for the purpose of determining the feasibility of launching a successful profession wide news publication for the engineering profession. The market analysis examines the potential audiences for such a publication, and their level of interest; the content and format that would be most appealing to the intended audiences; and how such a publication would be funded on a continuing basis. A consultant, experienced in market analysis for startup publications, would be retained to conduct an unbiased analysis and make recommendations that could be followed to launch a new periodical that would have appeal and provide a forum for the exchange of ideas and information across all segments of tne engineering profession. The consultant is retained by and supervised by the National Society of Professional Engineers, whose executive director serves as chairman on a task force to examine the feasibility of a professionwide news publication for the engineering profession.